Conference: FASEB Conference on Chromosome Biology and Cell States in Yeasts 2026

This award will provide support for the 2026 FASEB Conference: “Chromosome Biology and Cell States in Yeasts”, July 27-29. The meeting occurs every two years and attracts the best scientists in the field from around the world. The meeting includes talks that describe exciting new findings from both invited speakers and mix of trainees, young investigators, and senior scientists. There are accompanying poster sessions where all attendees can present their recent findings. Additionally, all trainees are invited to present a “Flash Talk” to describe their research. A longstanding goal of the meeting is to provide networking, collaboration, and learning opportunities to help build a strong workforce of scientists in this field and biotechnology. The meeting includes a “Meet the Expert” session where young scientists can meet established researchers to discuss their research and career goals, and a Career Development session that supports new investigators.

This meeting brings together scientists who use various yeast species to study two broad questions that are central to all life forms: 1. How do are chromosomes faithfully duplicated and partitioned? and 2. How do cells control their growth and division? Topics covered at the meeting include DNA replication and repair, chromosome structure and function, cell growth and division, and genome evolution. The methodologies used range from computational science and advanced imaging to population biology and molecular genetics that have implications for biotechnology developments. In summary, this long-standing meeting continues to grow and change to share emerging scientific information on the critical topics of chromosome biology and cell growth, and to build a strong STEM biotechnology workforce for the future.